Gordon Research Conference on Temperature Stress in Plants, Oxnard, California, February 1 - 5, 1993

This award provides partial support for the 1993 Gordon Research Conference on Temperature Stress in Plants, which will be held at the Casa Sirena MarinaHotel, Oxnard, California on February 1-5, 1993. Funds will be used to partially defray the travel expenses of invited speakers, session chairs, and junior scientists (graduate students and postdoctoral researchers). This is the fifth meeting of the Gordon Research Conference on Temperature Stress in Plants, which began in 1984 and has met biennially since 1989. Sessions are scheduled in the areas of freezing, chilling and high temperature stress and will include presentations ranging from whole plant responses to gene regulation. In addition, a session on global climate change will be featured at the 1993 Conference. A goal of these sessions will be to delineate the crucial interations of temperature stress and other environmental variables that are needed to predict likely responses of natural ecosystems and crop species at regional/global scales and to identify realistic goals that can be achieved in modifying plant species to improve their tolerance to temperature stresses. Such assessments, which require input of scientists working at all levels within thecontinuum of research on temperature stress, are crucial to policy-makers who seek information about the future of natural ecosystems and agricultural productivity.